CAREER: Ultra-low threshold all-optical nonlinear image processing with high-quality factor metasurfaces

Non-technical description
The field of optical engineering has reached such maturity that light scattering through a carefully design medium can replicate almost any function that a digital computer can perform, blurring the boundary between computational imaging and physical optics. However, nonlinearity – the seed of complexity in weather patterns, ecosystems, the human brain, and of course artificial neural networks – represents a key missing ingredient in all-optical image processing hardware. Intensity dependent light transport is well known, but it typically requires unreasonably bright light sources that are not found in everyday settings. By developing nanostructured pixels capable of trapping both heat and light, and efficiently generating heat from light, this project will produce nonlinear image processors that respond to the low power levels found in everyday light sources, such as LEDs and cheap laser diodes. This work will provide a big step towards economical object sensors capable of performing medical diagnostics, surveillance, and safety/security monitoring without needing a camera, computer chip, or even a battery. Inspired by creative individuals with no formal education in computer science or electrical engineering that solve interesting and important problems using high level programming languages and microelectronics kits, this project will also produce an “optical devices” apprenticeship. Developed in collaboration with industry experts, the course will train non-science students in the skills and techniques needed to realize useful nanophotonic systems via a guided-play based experience. Devices produced in the research portion of the project will be used within exhibits and workshops on all-optical image processing, targeting high school students to both inspire and empower them to enter the photonics workforce. Beyond science dissemination, these events will break misconceptions about scientific careers, highlighting creative expression and play rather than technical detail and mathematical rigor.

Technical description
In pursuit of nanomaterials that exhibit intensity dependence with exceedingly weak illumination, we will simultaneously optimize the contributions to nonlinear enhancement from both nano-structural resonances and intrinsic nonlinearities. This will allow us to discover and approach the upper-bound on nonlinear refractive index strength. Specifically, we will develop a new class of visible and infrared meta-atoms, referred to as dipolar guided mode resonators, that support extremely long-lived resonances while coupling efficiently to free space. These resonances will be optically and thermally tailored to amplify photothermal effects through a careful balance between radiation loss, thermal decay, and absorption. Addressing a crucial performance metric for any image filter – resolution – we will explore the fundamental limit for how densely an array of individually free space addressable high quality factor cavities can be arranged. The project will culminate in prototype demonstrations of one- and two-dimensional image thresholding filters with light sources ranging from picosecond pulses, amplified tunable diode lasers, and cheap fixed wavelength laser diodes and LEDs. As well as being a launch pad for all-optical machine vision research, we expect the devices we build to be directly applicable to low overhead commercial image sensors.